Research Initiation Awards: Dynamic Response and Shear Wave Velocity of Saturated Silt: Analytical Formulation and Ex- perimental Model Study Using Spectrial Analysis of Surface

This research project will study the dynamic response and shear wave velocities of silt under dynamic loadings using the spectral analysis of surface waves method. The results could be of value in geotechnical engineering practice, for example the stability of waterfront and offshore structures built on silty deposits.